Prototyping Multiscalar Processors

This project is evaluating a new architectural paradigm that can extract and exploit the parallelism in sequential code. This new approach uses both software scheduling in the compiler, as in VLIW, and hardware scheduling at run-time, as in superscalar architectures. The compiler segments code into large blocks of instructions that form subgraphs of the control-flow graph, though not necessarily basic blocks. The compiler appends synchronization information to each block that describes which registers must be shared with blocks. The compiler appends synchronization information to each block that describes which registers must be shared with other blocks. The blocks or tasks are passed to separate identical parallel execution units, each of which executes its task sequentially. Tasks are scheduled optimistically, so that some tasks may be executed by a unit when they would not be executed in a sequential system; in such cases, the tasks are "squashed," which means that their results are not written to memory or registers. At the end of each task, it blocks until the system determines that the task will not be squashed; at that time results are committed. The collection of execution units appears logically to be one unit, with a single register file. Shared register values are passed on an inter-execution-unit network, and tasks that need shared values block until the values are produced. During the first two years of this award is devoted to compiler design for the new architecture, to comparison with other architectures using simulation, and to conceptual refinement of the architecture. During later years, work is expected to focus on implementation.